ACM Workshop on Applied Computational Geometry, May 27-28, 1996, Philadelphia, PA.

This grant is to support travel for the ACM Workshop on Applied Computational Geometry to be held on May 27-28, l996 in conjunction with the second Federated Computing Research Conferences (FCRC) in Philadelphia, immediately following the ACM Symposium on Computation Geometry. This workshop is mainly designed to bring together practitioners and theoreticians in computational geometry and other related applied fields to discuss the current research and future directions in these communities, to facilitate technology transfer from theory to practice, and to identity future joint programs and collaboration. ***